Development and Applications of Cascaded GaAs-based OEIC Signal Processors

9407755 Warde 1. Design, fabricate and characterize 2-D arrays of GaAs-based optoelectronic circuits in which each pixel consists of an optical detector, transistor logic and analog decision circuits, and a light modulation or generation element. Initially, ferroelectric liquid crystals will be used for light modulation element and ultimately, laser diodes will be used for light generation. Nearest neighbor interpixel electrical communication and local configuration memory will also be incorporated. 2. Build versatile hybrid optical processors by employing these arrays of OEICs cascaded in conjunction with in-house fabricated high efficiency computer-generated holograms, a 2-D detector array and an electronic controller. 3. Characterize these optical processors and demonstrate their operation in systems for solving difficult pattern recognition tasks. In specific, these OEIC processors will be programmed with algorithms implementing unconstrained handwritten character and word recognition functions we have developed. ***